Vibrational Spectra and Structure of Macromolecules

Theoretical methods, such as normal mode analysis and ab initio calculations, are being combined with experimental studies to provide rigorous analyses of infrared and Raman spectra of macromolecules in terms of their structures and morphologies. The present research covers five areas: (1) a study of the longitudinal acoustic mode in poly(ethylene oxide) as an example of a helical polymer, incorporating normal mode analyses of the effects of intermolecular forces and chain defects on this mode; (2) a study of chain conformations in chlorinated poly(vinyl chloride) by normal mode analysis, involving refinement of a force field for vicinally chlorinated hydrocarbons; (3) a study of surface enhanced Raman spectra of poly(vinylpyridine) in order to characterize the interaction of the polymer with a metal surface, starting with a detailed normal node analysis of such spectra of the monomer; (4) a study of spectra and structure in polyprolines, based on a refinement of a force field for the imide group in N,N-dimethylacetamide; and (5) a study of the dependence of polypeptide force field on conformation, based on ab initio calculations on dipeptides. These studies will provide new insights into general and specific features of the relationships between spectra and structure of macromolecules.